Conference on The Role of the Comprehensive University in U.S. Undergraduate Science Science: February 1989

The goal of this project is to develop a better understanding of the role of the Comprehensive University in U.S. science, engineering and mathematics education. The Comprehensive Universities are an important segment of the higher education effort and make a significant contribution toward meeting the nation's needs for undergraduate education in science, engineering and mathematics. A central part of the effort is a conference of representatives from the Comprehensive Universities focusing on the topic. A principal resource for the participants in the conference is the pre-conference report which analyzes the problems, describes some approaches for improving undergraduate science, engineering and mathematics education and offering recommendations for further actions by the universities, government and private industry.